Collaborative Research: Paleoenvironmental Time Series From Postglacial Lake Basins on Kola Peninsula, Russia

Abstract ATM-9632926 MacDonald, Glen M. University of California, Los Angeles Title: Collaborative Research: Paleoenvironmental Time Series from Postglacial Lake Basins on Kola Peninsula, Russia It is poorly known how dramatic changes in deglacial and Holocene climates in the North Atlantic region propagated into the Eurasian arctic. Lacustrine and estuarine records from the Kola Peninsula, adjacent to the North Cape Current, the eastern-most limb of the North Atlantic current, provide archives to assess postglacial and Holocene variations in lakes, vegetation and tree line and inferred changes in atmospheric and oceanic circulation. Extant cores from northern Kola Peninsula provide estuarine and lacustrine records spanning at least the last 12,000 yrs. Preliminary analyses demonstrate that these sediments are rich in biologic remains, ideal for securing a reliable radiocarbon chronology and determining environmental changes. This PALE/ARCSS award supports lake coring on a transect from the tundra-dominated northern coast to the forested center of Kola Peninsula. This research will utilize an array of paleoecological techniques such as pollen, diatom, macrofossil and sediment analyses, augmented by recent advances in stomate, chironomid and cellulose stable isotope analyses. To strengthen the paleoenvironmental interpretations of the cores, modern sediment samples will be collected from lakes to statistically calibrate pollen, stomate, diatom, and chironomid records with present climatic, edaphic and vegetation conditions. The research will provide new late glacial and Holocene records from the western Russian arctic, currently a void in global paleoclimatic time series. The collaborative research is with Dr. Steven L. Forman at the Ohio State University (ATM-9600126).